Building Research: Room Air and Air Contaminant DistributionSymposium Monticello, Illinois, November 1988

An international symposium on "Room Air Contaminant Distribution" will be held at the University of Illinois Allerton Park Retreat during Winter 1988. Symposium attendees will be limited to 50 to 70, including some international experts invited by the Symposium Planning Committee to share their expertise, and the remainder selected on the basis of abstracts submitted to the Planning Committee. A minimum of 50% of the participants will be full-time faculty at United States universities. The purposes of the symposium will be to: 1) exchange knowledge among experts from the diverse types of fields with interest in this topic (e.g., architectural engineers, mechanical engineers, chemical engineers, agricultural engineers, physicists), and including university, industry and government researchers, 2) define a research needs agenda for the National Science Foundation (i.e., provide both direction and a statement of importance for research on this topic) and 3) help develop and organize the expertise of engineers and scientists from United States universities on this subject. The symposium will be organized into: 1) brief technical presentations by each participant, 2) whole group and small group discussions of research, research needs and importance, 3) informal discussions in a retreat setting (lodging and meals will be furnished at the site) and 4) a wrap-up session to agree on major recommendations. All participants will receive advance summaries of other participant's abstracts. Following the symposium, a proceedings including participant's papers and the recommendations from the symposium will be prepared.